Text-Based Signal Processing

The goal of this research project is to explore the applicability of advanced signal processing techniques to certain problems arising in natural language text processing. Specifically, we seek to evaluate the effectiveness of using multiple hypothesis tracking concepts, originally developed for radar target tracking applications, to the problem of correlating text-based messages over time. A key concept in this project involves treating a natural language message or statement as a sensor report. Such a text message, M, is regarded as a random variable that is related to the underlying truth of a system's state, S, through joint and conditional probabilities, p(M|S), p(S|M), and p(S, M). For example, p(S|M) is the probability that the true system state is S given that an observation, M in text form, has been reported. The tracking problem is to estimate the most likely sequence of states Stl, St2, ..., Stk given a sequence of text-based observations, Mtl, Mt2,..., Mtk, of those unknown states. Formulated as a maximum likelihood estimation problem, this can be solved using standard recursive estimation methods including Viterbi's algorithm.